Disciplinary Improvements: Expanding FAIR principles for NCAR Data Commons to ensure Responsible Use through Fitness-for-Purpose Literacy

This project will develop a system of research data management and curation standards for producers, tied to the foundation of the FAIR principles, along with mechanisms for user data discovery and responsible use of geoscience data. This effort is aimed at managing and mitigating unintentional data misuse that is a consequence of misinterpretation or misunderstanding of data validity or fitness.

Specifically, the team aims to develop metadata and supporting documentation standards for data producers and providers, which promotes and advances the gathering and disseminating of information about data fitness-for-purpose. For users the effort will utilize the semantic frameworks and technologies of ontologies and knowledge graphs to increase literacy around those characteristics of data that determine its appropriate and responsible use. These will be tailored towards the context of data application in machine learning and artificial intelligence in the geosciences. The development of these standards, mechanisms, and tools will be achieved through consultation with a diverse community of producers and developers of geoscience data, including observations, reanalysis, and model output.

The project is supported with funding from the Directorate for Geosciences (GEO) and managed by the Directorate for Computer and Information Science and Engineering (CISE) Office of Advanced Cyberinfrastructure (OAC).